Summer Program at CETUP*

This award will provide participant support for early career scientists and graduate students to participate in the second CETUP* program that is planned to take place on July 10 - August1, 2012 in Lead, SD. The topics to be covered are at the forefront of research topics in particle and nuclear physics and will explore new physics beyond the Standard Model. The study of neutrino physics and dark matter is of high interest to particle and nuclear physicists and astrophysicists. The ongoing and proposed dark matter and neutrino experiments are expected to unveil the answers to critical questions asked by scientists for last few decades. Recent precise measurements of all the neutrino mixing angles necessitate a theoretical roadmap for the future. Understanding the nature of dark matter better would help to understand the composition of the cosmos better.

The scope of the 2012 summer CETUP* program will include the "Dark Matter" program followed by a three day interlude program (July 19-21) comprising of "Dark Matter, Neutrino Physics and Unification." Following that, there will be a week and a half long focused theory session on "Neutrino Physics and Unification" and a 3-day long Physics Working Group workshop of Long Baseline Neutrino Experiment (LBNE) (July 30 - August 1).

Among the Broader Impacts, understanding neutrino properties better could have significant implications in astrophysics and cosmology, and may offer solutions to the current puzzles such as the abundance of matter over antimatter in the Universe. Outreach efforts will aim to share the excitement of this research with K-12 students and general public. Selected CETUP* participants will give three public lectures that outline the importance of dark matter and neutrino research. Such presentations at a level comprehensible by the general public are important for developing public support for national investment in basic science. South Dakota Public Broadcasting will record and stream the lectures state wide as well as post it on their website for those who couldn't participate live. They also will be working with the Crazy Horse Memorial Foundation to reach out to Native American students and include them in the educational activities at the CETUP* as well as organize an informal get together with the students and discuss their interests in science and possible future STEM career opportunities.